Research Explorations for Teachers

The University of Minnesota will conduct "Research Explorations for Teachers," a program for 50 secondary teachers from Minnesota to join University faculty research teams. Research projects are in areas such as: ecology and behavioral biology, microbiology, geology, neurology, human genetics, soil science, archaeology, anthropology, etc. Most projects will take place in Minnesota; some, abroad. In addition to participating in the research projects of their choice, teachers will attend three seminars conducted by University faculty that will focus on the use of research in classrooms, recent trends in scientific research, active learning styles, and curriculum development. Teachers will receive both financial support and instructional assistance for developing curricular materials related to the content and inquiry-based approach of their research experiences. Curricular material resulting from these projects will be distributed in at least three ways: (l) at meetings of the Minnesota Science Teachers and the Minnesota Council of Social Studies Teachers; (2) through the publication and distribution to district curriculum specialists of the best materials created by teachers in this program; and (3) at in-service days of participating school districts. An amount equivalent to 18.7% of the NSF award is being contributed as cost-sharing.